High Power Density Multichip Cooling Modules for Large Digital Computers

The capability to remove heat dissipated in integrated circuitry is a highly critical factor in the successful design and operation of the next generation of general propose mainframe computers. It is virtually a certainty that some sort ofliquid immersion-cooling scheme will be adopted. However, there are many candidate schemes, and it is still open as to which scheme will be used. The present proposal is aimed at providing information about one such scheme--the impingement of multiple jets, with the heat transfer being removed by boiling. The expectation is that the experimental results will be fully sufficient is adopted.